Support of the Workshop Entitled "Second International Conference on Transport Phenomena in Micro- and Nanodevices"

PROPOSAL NO.: CTS-0601099
PROPOSAL TYPE: INVESTIGATOR INITIATED
PRINCIPAL INVESTIGATORS: M. GAD-EL-HAK
INSTITUTION: VIRGINIA COMMONWEALTH UNIVERSITY

SUPPORT OF THE WORKSHOP ENTITLED SECOND INTERNATIONAL CONFERENCE ON TRANSPORT PHENOMENA IN MICRO-AND NANO-DEVICES

Interest in micro- and nano-electromechanical systems (MEMS and NEMS, respectively) has experienced explosive growth during the past few years. Rapid progress in fabricating and utilizing MEMS and NEMS has not been matched by corresponding advances in understanding of the unconventional physics involved. Providing such understanding is crucial to designing, optimizing, fabricating, utilizing and controlling improved minute devices. This international workshop has the primary objective of improving fundamental understanding of the physics of transport phenomena in micro- and nano-devices. Partial support from the National Science Foundation will facilitate the attendance of several American students and other researchers who would otherwise be unable to attend. The workshop will take place 11-15 June 2006, in Barga, Italy. The first workshop in this series was held 17-21 October 2004 in Kona, Hawaii. This meeting will bring together a small but select group of researchers interested in all aspects of transport phenomena in MEMS and NEMS, i.e. transport of mass, momentum, energy and quantum particles in devices with characteristic lengths as small as 1 micrometer and 1 nanometer, respectively. A unique aspect of this workshop is bringing together two communities that have not interacted much in the past, those of quantum transport and classical transport. The broader impact resulting from the proposed activity lies in its focus on rapidly advancing micro- and nanotechnologies. The fundamental understanding that the workshop provides will result in potential advances in areas such as: micro- and nano-systems involving particulate and other multiphase flows, mixing, combustion, energy conversion, computing, biochips, photonics, microfabrication involving transport phenomena, such as spin coating and etching, quantum dots and circuits, electronic transport through organic and inorganic materials, molecular electronics, control of electronic wave functions in molecules, quantum computations, and single-electron devices. Selected papers and a roadmap for future research will be published in the form of a hard cover book or a special issue of Physics of Fluids and will be made widely available to the research community

Jointly funded by the CTS programs of Fluid Dynamics & Hydraulics, Particulate & Multiphase Processes, and Thermal Transport & Thermal Processing.